Third Bridge Engineering Research in Progress Workshop; Fall1992; San Diego, California

Rehabilitation and strengthening of bridge structures have become a major focal point of the Nation's aging bridge inventory. To mitigate the staggering rehabilitation problem the Bush Administration is on record "...to be committed to develop a strong transportation research and technology program." The workshop will address a vital component of the national transportation research program the nation's bridge inventory and will associated ongoing research efforts. The workshop has three principal objectives, namely (1) to identify the state-of-the-art in bridge design and retrofit research, (2) to develop means of transferring research results to implementable technology and (3) to establish bridge research directions and priorities in support of the nation's bridge infrastructure for the 21st century. The workshop is the third in a series of NSF supported Bridge Research in Progress Workshop and is envisioned to be held in San Diego, California in Fall of 1992.